Minority Postdoctoral Research Fellowship

This applicant proposes to study the impact of race and poverty on access to needed medical care. More specifically, the study will integrate dissatisfaction with medical care, structural barriers to medical care, and social roles into a consolidated research approach to explain race and poverty status differences in access to needed medical care. The work will be carried out in conjunction with Dr. William Rakowski at Brown University.